US-India International Workshop: Collaborative Science, Research, and Education in Air Quality Measurements, Modeling and Analysis, Gurgaon, India, Fall 2010.

1034759
Aneja

This award supports a U.S.-India workshop on air quality entitled Collaborative Science, Research, and Education in Air Quality Measurements, Modeling and Analysis. The co-organizers are Professors Viney Aneja, North Carolina State University (NCSU) and M.P. Singh, Chairman of Ansal Institute of Technology, Gurgaon, India. The overarching goal is to bring together experts from the U.S. and India to identify and promote collaborative research with specific emphasis on improving the science of the current regional/global air quality modeling system being developed in the U.S. It is anticipated that the workshop will result in major research initiatives in the U.S. that will enhance the state of science in air quality measurement and modeling. It will also raise the awareness of open-source modeling tools among the large pool of Indian scientists.

Specific objectives of the workshop are to bring together US and Indian participants from academia, industry, and government to: identify the scientific challenges stemming from variability in both meteorological and emission conditions in multi-scale atmospheric photochemical models, plan for future collaborative research involving US and Indian scientists, and develop research proposals for submission to NSF and other agencies in the U.S. and India. EPA and NOAA have offered in-kind support for this activity and the Government of India's Ministry of Earth Sciences has committed to providing financial support for senior and young scientist participants from India.